Acquisition of a Flow Cytometer for Oceanographic Research

9601873 Greene We propose to purchase a Becton Dickinson FACSCalibur Flow Cytometer. This system will include two laser, four- color capability, and a sorting system. Also included is a computer, data analysis software, and a data storage system. Flow cytometry is now an essential technology for modern oceanographic studies. Flow cytometry is the best method for rapid analysis of the picoplankton, organisms less than 2 p.m in size, which are the dominant autotrophic and heterotrophic plankton in most open ocean environments. Faculty in the Oceanography Department at Texas A&M University currently have funded projects based in both the North Atlantic and North Pacific central gyres which would utilize the capabilities of the flow cytometer to analyze picoplankton populations. Other research projects in the Department of Oceanography which would benefit greatly from this instrument include the study of the cell division in eukaryotic marine phytoplankton, the analysis of picoplankton cultures, plankton studies using molecular probes, coastal studies of nitrifying bacteria, and stable isotope studies of the microbial loop. An annual training course in the theory and use of the flow cytometer would be offered to undergraduate and graduate students, and this facility will be used to attract graduate students to Texas A&M. A plan for management of the facility is also outlined. ***